Combinatorial Catalysis and Reactivity

This research focuses on using combinatorial methods to elucidate the catalytic activity of polyalkylamine polymers with carboxylic acid functionalities. To elucidate the mechanism by which these poorly characterized heterogeneous systems catalyze ketone reductions, elimination reactions and the Robinson annulation reaction, variables known to affect both the efficiency and the induction period preceding full catalytic activity will be systematically addressed by means of an automated combinatorial protocol. Synthetically modified precursors will be used to elucidate substrate specificity in the optimized systems. Graduate students involved in the research will be introduced to combinatorial techniques and their application to elucidating and optimizing heterogeneous catalytic activity. The Organic and Macromolecular Chemistry Program supports the research and educational activities of Professor Fredric Menger of the Department of Chemistry at Emory University. Professor Menger will use an automated combinatorial approach to determine and optimize the catalytic activity of polyalkylamine polymers with appended carboxylic acid functionalities. Professor Menger's educational activities include training graduate students in combinatorial methodology, and the use of this methodology in identifying and optimizing the catalytic activity of polymer substrates with different appended carboxylic acids.